Gems of Exposition in Elementary Linear Algebra

Efforts are under way to collect and broadly disseminate gems of exposition in elementary linear algebra. These include especially insightful proofs, short and open-ended problems, longer expositional items, and machine-oriented, computational exercises, all of which are designed to communicate fundamental liner algebra ideas to beginning students. Items are being solicited from a wide range of individuals worldwide and are being published in a volume designed to be available at low cost.